Quotient Correlation, Nonlinear Dependence, and Extreme Dependence Modeling

The proposal consists of five important steps. First, the
investigator develops new dependence measures (quotient correlation)
and analyze the resulting test statistics. It is important to
develop test statistics for tail independence based as much as
possible on appropriate tail observations and less on observations
from the center which may bias the analysis. Clearly, the decision
on "where does appropriate" stands has to be carefully analyzed.
Second, a new measure for extreme co-movement is introduced. This
measure allows one to calculate probabilities of occurrences of
certain extreme events in the future given the past history of the
extreme movement of underlying variables. Third, the proposal
includes the development of statistical estimation methods for
max-stable processes. This allows one to efficiently study clustered
spatial-temporal extreme observations. Fourth, procedures of how to
calculate portfolio risk measures -- such as unconditional or
conditional Value at Risk -- are also introduced using combined
Markov process and max-stable process models. Fifth, the statistical
analysis of extreme co-movements is of considerable importance in
practice. For example, the notion of spillover in global financial
markets and credit loss data can be thought of as one area of
application.

The intellectual merit of the proposal in a first instance stems
from a precise testing procedure for extremal dependence. As all
definitions used depend on some limit procedures and often concern
statistical testing for parameters at the edge of a specific
parametric space (hence possibly testing is a non-regular estimation
problem), great care has to be taken to obtain tests with sufficient
power. The proposal is exactly aiming at finding a solution for
this. Several procedures for tackling this problem have been
published, however, up to now, no clear winning approach seems to
exist. The investigator will carefully compare and contrast new
approaches with existing ones using simulated as well as real data.
The real data will come from areas as diverse as insurance, finance,
telecommunications, climatology, seismology, medicine, etc. Beyond
these methodological merits and specific applications, the proposal
also has a considerable broad impact. Throughout applications in
diverse fields (like above), extreme risks play an important
scientific, societal as well as (possibly) political role. The
dissemination of new statistical tools leading to a better
understanding of the occurrence of joint extremes is of great
importance. This can be very well achieved at the level of new
graduate courses, publications in journals aimed at a broaden
audience and in discussion with scientists from other fields.